Organization of the 1994 Compact Blue-Green Lasers Topical Meeting, February 10-11, 1994, Salt Lake City, Utah

9411037 Hennage This award provides for support of the 1994 Compact Blue-Green Lasers Topical Meeting, to be held February 10-11, 1994 at the Salt Lake City Marriott in Salt Lake City, Utah, and will provide support for partial travel for four Russian scientists to attend the Compact Blue-Green Laser (CBGL) Conference: K. S. Buritskii V. A. Chernyh E. A. Shcherbakov V. A. Maslov These four scientists are co-authors on two oral papers that will be presented at the CBGL conference, as well as on two post-deadline papers they plan on submitting. This conference emphasizes low cost, efficient, compact laser sources, for a broad range of commercial applications and has been attended by many researchers in this field and by many potential customers of these laser sources. ***